40 Ar/39 Ar Isotope Geochronology of Caledonian Orogenic Collapse, Southwest Norway

An outstanding problem in tectonics is the nature and timing of extensional collapse of previously thickened crust in orogenic belts. This proposal is to date structural features attributed to the extensional collapse of the Caledonian orogen in southwest Norway. Structural features to be dated include: uplifted high- pressure eclogite rocks; retrograde, amphibolite facies meta- morphism, and; major, km-thick mylonite zones, some of which are at greenschist grade. High-precision data will be obtained using the 40Ar/39Ar dating method and will allow comparison of uplift ages among different areas. Collaboration with local geologists from the University of Olso will ensure that the data are obtained with good structural control. The combination of well-known local geology and excellent exposure in SW Norway, with high-precision ages and testable tectonic models, will significantly improve the understanding of orogenic collapse processes.